Reactive Intermediates

Proposal: 9322579 ABSTRACTDate: 01/20/94 PI: Maitland Jones, Jr.Institution: Princeton University This grant from the Organic Dynamics Program supports the continuing work of Professor Maitland Jones Jr. at Princeton University to study carbenes and nitrenes and their carborane derivatives. Synthetic and spectroscopic studies will be conducted to examine the importance of precursor chemistry in the current methods used for making carbenes, to elucidate a new carbene 'zipper' reaction, and to generate novel strained bridgehead olefins which will be stabilized by adamantyl groups. Focal points of this research are the exploration of the chemistry of carbene and nitrene substituted carboranes, labeling experiments to elucidate carboranylcarbene rearrangements, and reactions toward aza- and silacarboranes. High spin carboranes incorporating several carbenes and/or nitrenes will be synthesized and studied for their properties. Dehydro-o- carboranes will be used to form hydrocarbon addition products. In this project Dr. Maitland Jones will conduct synthetic and spectroscopic studies on a spectrum of carbenes and nitrenes including those that contain a carboranyl substituent. His research is directed to improve current methods for generating these highly reactive species and to expand their application for syntheses of new strained olefins and unsaturated carboranes. Fundamental synthetic and mechanistic information will be obtained from these reactive intermediates that crosses the boundaries between organic and inorganic chemistry.